Pacific Science Congress, Honolulu, Hawaii, May 27-June 2, l991

The Pacific Science Association (PSA) is a non-governmental, multinational society dedicated to the study of scientific problems of particular pertinence to the Pacific region. A major, on going activity of the PSA is to organize, every four years, a major Pacific Science Congress. The Congress represents the major means through which the PSA meets its stated objective of promoting cooperation and communication in science and technology among the communities of the region. The XVII Pacific Science Congress will be held in Honolulu from May 27 to June 2, 1991, the first time the Congress has met in the United States since 1961. Titled "Towards the Pacific Century: The Challenge of Change," the Congress will feature major symposia on such topics as global environmental change, biological diversity, health and social change, natural disasters, and technologies for development. In view of the profound economic and social changes currently in evidence throughout the Pacific region, and the interactions of science and technology with those changes, the Honolulu Congress is expected to be a highly significant event. This grant will enable conference organizers to provide travel support to prominent scientists from the less developed countries of the region to participate in the Congress as invited speakers.